Predicate-Sensitive Software and Hardware Analysis to Enable Optimization and Speculation

Predicated execution is a feature used in the Explicitly Parallel
Instruction Computing (EPIC) architecture for achieving the
instruction level parallelism (ILP) needed to keep increasing future
processor performance. The IA-64 processor being developed at Intel
with Hewlett Packard is an example of an EPIC architecture. An
advantage of predicated execution is the elimination of
hard-to-predict branches by combining both paths of a branch into a
single path, thereby obtaining additional opportunities for ILP.
However, this merging of several paths into one has disadvantages, as
it complicates optimizations and scheduling in both software and
hardware.

This research develops a comprehensive framework for new compiler and
hardware analysis whose projected impact is to realize the performance
of predicated execution. Underlying our framework is the efficient
maintenance and use of predicate relationships and precise information
about predicated regions. This proposal builds on our prior work by
(1) incorporating critical path and resource constraints into a
compiler intermediate form for predicated compilation, (2) developing
hardware structures to allow predicate speculation and out-of-order
execution, (3) developing software and hardware dynamic predication
and (4) developing predicate-sensitive compiler optimizations,
especially those based on value prediction or profiling.